Scalable Decentralized Control over Ad Hoc Sensor Actuator Networks

Title: Scalable Decentralized Control over Ad Hoc Sensor-Actuator Networks
Summary: This project studies the extent to which ad hoc networks of sensors and actuators
may be used to implement large-scale feedback control systems. Dense ad hoc networks suffer from
significant capacity limitations that suggest scalability may only be achieved if we restrict ourselves
to localized network traffic patterns. Moreover, such sensor-actuator networks have a large number
of clients sharing the same communication channel, so that contention between different clients will
greatly reduce the amount of data that can be streamed between sensors and actuators. Maintain-
ing specified levels of overall control system performance in such a non-deterministic environment is
extremely challenging and we feel that it can only be achieved if we adopt a cross-layer approach in
which application (i.e., control) algorithms and networking protocols are intimately aware of each
others capabilities and limitations. This project investigates fundamental relationships between
control system performance and network quality-of-service (QoS). The project will use these rela-
tionships to develop decentralized control algorithms and supporting network middleware services
that can guarantee application (control) performance over extremely large ad hoc sensor-actuator
networks. The intellectual merit of the proposed work lies in its precise characterization of the
way in which network middleware impacts control system performance. The project will demon-
strate these algorithms and services on a physical testbed in which a spatially-distributed physical
plant is controlled in a decentralized manner over an ad hoc radio (RF) network of embedded
processors.
The project's broader impacts will be felt through its impact on undergraduate education at
Notre Dame as well as through on-going collaborations with civil, environmental, and mechanical
engineering researchers both in and out of Notre Dame. In particular, the project's proposed testbed
will be tied to undergraduate courses in electrical and mechanical engineering, thereby providing
students with a novel opportunity to contribute to an on-going research program. Moreover we
are collaborating with civil/environmental engineers to develop sensor-actuator networks that can
address the combined-sewer overfow (CSO) problem faced by a number of municipalities across
the Midwest and Eastern United States. The results from this project have the potential to reduce
anticipated costs associated with solving the CSO problem. The results from this project will
therefore have a broad societal impact extending well beyond the immediate project objectives.